International Workshop on Fiber Optic Sensors for Construction Materials and Bridges

9632406 Ansari Fiber Optic sensors have the potential to provide true real- time condition monitoring capabilities for construction materials and bridges in the twenty-first century. Optical fiber sensors provide remote distributed measurement capabilities which makes it possible to discern, in real- time, the formation and progress of damage within various sections of a structure. The workshop will aid in prioritizing and planning of a coordinated research program in order to transfer this technology to the practice of civil engineering. Research activities are divided into six tasks including: sensor characterization, transduction mechanism, sensor embeddment and adhesion, sensor durability, condition monitoring of bridges and standards, and specifications. The workshop will be held during 1997 in Washington, D. C.. The final products of the workshop will be in the form of a hard bound book detailing the state-of-the-art on fiber optic sensor systems for construction materials, and a comprehensive report outlining a detailed five year national plan for research. ***